46th Gaseous Electronics Conference; Montreal, Quebec, Canada

Lawler This grant supports travel expenses for graduate students to attend the 46th annual Gaseous Electronic Conference in Montreal, Quebec, October 19-22, 1993. The program emphasizes novel experimental techniques of collision physics and serves as a forum for topics on the boundary between basic science and several fields of applied and interdisciplinary science. The meeting is sponsored by the Division of Atomic, Molecular and Optical Physics of the APS.